Linkages Between Microbial Diversity and Processes Along Nutrient Gradients in Wetlands

Abstract

00-78368
Ogram

Linkages between microbial diversity and processes along nutrient gradients in wetlands

Much is known of the response of process-level functions (e.g. rates of carbon mineralization, nitrogen fixation, denitrification, sulfate reduction) to nutrient inputs in wetlands. Almost nothing is known of the prokaryotes responsible for these processes or of possible changes in species composition or richness of the resident microbial communities. This Florida Everglades study will test the hypothesis that the addition of nutrients to a large-scale ecosystem will change activities and representation of key groups of bacteria responsible for carbon and nitrogen cycling and sulfate reduction. The investigators are using molecular methods to study the microbial groups present along a phosphorus gradient, identifying "indicator" phylogenetic and functional groups that change either with regard to composition, species richness or activity along the gradient. The study will provide an opportunity to study the process of "reverse eutrophication" (recovery) using an integrated biogeochemical cellular, and microbial process-level approach.